Sixth International Conference on Surface Modifications Technologies

This award will provide travel funds for students to attend the Sixth International Conference on Surface Modification Technologies to be held at Chicago, Illinois, in conjunction with Materials Week in November 1992.